Committee on Women in Science and Engineering (Sociology)

With the exception of psychology and the health sciences, women continue to represent only marginal participants in the continuing flow of new doctorates into the U.S. science and engineering talent pool. The output of graduate training directly affects the pools of talent available to research organizations; colleges and universities; civic, governmental, and religious entities; businesses; and elementary and secondary education. As William Bowen said, At their best, those who earn graduate degrees in the arts and sciences contribute not only their own ideas to society, but also a capacity to educate and prepare those who will exercise leadership on a broad scale. Clearly, the extent to which women can be players in this labor market rests on their number emerging each year from graduate training. The factors that affect the level of participation of women in graduate training and in the labor force are well known and include the availability of adequate financial support, interactions with role models and mentors who can provide guidance in potential career choices, support of family members and peers, opportunities to interact with women scientists and engineers in similar academic programs or employment, and even women's own confidence in their ability to "do" math and science. The role of a continuing committee would be to identify the factors that can be influenced rapidly and efficiently and to generate an action plan to do so. The action plan to be developed by the Committee on Women in Science and Engineering of the National Research Council (NRC) will respond both to needs identified by Federal and private sponsors as well as by the expert opinions of the committee of leaders in this area.